NSF/Alfred P. Sloan Foundation Postdoctoral Research Fellowship in Molecular Evolution for FY 1997

Abstract DBI 9750079 John Huelsenbeck This action funds an NSF/Alfred P. Sloan Postdoctoral Research Fellowship in Molecular Evolution for 1997. These fellowships support studies involving the theoretical, comparative, computational, and/or experimental analyses of biological patterns and processes at the molecular level within the framework of organismic evolutionary change and adaptation. These studies also include the use of molecular data to address broader evolutionary questions. Each fellowship supports a research and training plan to be carried out in a sponsoring laboratory. The research and training plan for this fellowship is entitled "Testing Models of Cladogenesis in a Phylogenetic Context." Phylogenetic trees (diagrams depicting the genealogical relationships of species) can be used to examine the process of speciation and extinction. This research focuses on how speciation and extinction rates can be estimated from phylogenetic trees of living and fossil bivalves.